U.S.-U.K. Cooperative Research: Storage Management for Persistent Programming Languages

This three-year award supports U.S.-United Kingdom cooperative research in software programming languages between J. Eliot Moss of the University of Massachusetts and Ron Morrison of the University of St. Andrews in Fife, United Kingdom. The objective of their research is to extend main object space algorithms for use in collecting persistent object databases. This so-called garbage collection scheme will locate, and organize for reuse, memory containing data which is no longer accessible in databases. The project brings together two compatible and complementary research groups in persistence research. The algorithm extensions will be designed jointly, and then implemented, evaluated and integrated into each team's existing database systems. The project will advance our understanding of the management of huge amounts of data in object databases.